Parallel Computational Geometry Algorithms and Implementations

This project is concerned with parallel algorithms in computational geometry that will be efficient when applied to large, real, databases. The emphasis is on implementable algorithms instead of on algorithms with merely good theoretical asymptotic performance. Two major techniques to be used are uniform grids and local topological structures. The uniform grid allows efficient, easy, spatial coincidence determination. Local topological data structures allow the calculation of mass properties of a (well-defined) polyhedron without having any global topological information. This research will extend previous work in visible surface determination and Boolean combinations of polyhedra to higher level algorithms. These algorithms included determining mass properties of a constructive solid geometry tree, finding the tool-path volume and volume of material cut out by a numerically controlled drill, interference detection in robotics, and the cross-area problem in cartography. What these applications all have in common is the need to determine spatial coincidences in large databases and to find mass properties of Boolean combinations.